Algorithm Design for VLSI Layout

Sarrafzadeh The research is in four areas of geometric algorithms for design tools. The research topics are: 1. floor planning by graph dualization; 2. placement of modules by exploiting circuit regularities; 3. rectilinear Steiner tree problems; and 4. point dominance problems. In floor-planning, topological aspects of the problem are considered and geometric issues such as sizing are explored. A clustering technique for module placement, that exploits regularities in circuit structures, is being investigated. In this way natural clusters that reflect the hierarchical perspective of circuit connections can be built automatically. Problems in approximate designs for global and single layer routing using Steiner trees are being investigated. Point dominance, from computational geometry, is being applied to circuit layout problems.